Relativistic Many-Body Theory for Atoms

A new approach to calculate the energies, transition rates, hyperfine constants and other related parameters for large atoms with two or more electrons is developed within the framework of relativisitic many-body theory. The goal is to evaluate the amplitudes of parity non-conserving transitions in thallium, lead and bismuth to 1% or better. This will provide invaluable tests of the standard model of electroweak interactions.